"QUEST: Investigating Our World" -- A Regional Public Television Science Series for Northern New England

Maine Public Broadcasting Corporation is producing three seasons of a regional television series that will enable audiences to explore, appreciate and learn about the relationship between science and everyday life in Northern New England. The project is being developed in collaboration with public television stations in Vermont and New Hampshire and will attract viewers by focusing on content and issues that are of unique interest to this area. It addresses the critical need to improve science literacy in this predominantly rural region of the country. Ancillary materials will be developed for use at home, in the community, and in classrooms and will consist of: Quest "Take-Home" Activity Pages, "In Your Community" Guides, Quest Community Events, and Classroom Lesson Plans and Suggested Activities.